Amortized Analysis for On-Line Learning Algorithms

The focus of this project is a new family of algorithms that has been recently developed within the Computational Learning Theory community. Algorithms in this family do multiplicative updates to their parameters instead of the usual additive updates characteristic of the standard gradient descent methods. The algorithms from the new family have radically different behavior from the algorithms of the gradient descent family. The new family of algorithms is particularly useful when the input dimension is large and the best parameter setting is ``sparse'' -- having only a few non-zero parameters. In many simple settings, the new family has proven loss bounds that grow only logarithmically in the total number of parameters when the best parameter setting uses only a few parameters, whereas the standard algorithms can easily be forced to have loss proportional to the number of input variables for the same targets. This indicates that the new family of algorithms is likely to be particularly effective in settings where the input dimension is large (such as in Information Retrieval) or where a small number of inputs are expanded to a large number of non-linear basis functions over the original inputs. The goals of the research are to extend the new family of algorithms, quantify the qualitative differences between the new family and existing algorithms, and to demonstrate the practical importance of the new family.***